FASEB Summer Conference: Folate, B-12 and One Carbon Metabolism - August 1992, Vermont Academy, Saxtons River, Vermont

Funds are requested for partial support of the fourth Conference on Folic Acid, Vitamin B12 and One Carbon Metabolism, to be held under the auspices of the Federation of American Societies for Experimental Biology from August 2-7, 1992 at Vermont Academy, Saxton's River, Vermont. This conference offers a unique opportunity for scientists from a broad group of disciplines, who share an interest in folate, B12 and one carbon metabolism, to interact both formally and informally. Sessions have been scheduled on the biosynthesis of folic acid and cobalamin, on the mechanisms of folate- and cobalamin-dependent enzymes, on the structures of these enzymes, on transport and compartmentation of folates, antifolates and cobalamin derivatives, and on clinical evaluation of antifolates now in various phases of clinical trail. A second major focus will be on the role of folate and B12-dependent enzymes in metabolism. Sessions are planned on the evaluation ofthe nutritional of both normal and diseased humans, and the effects on metabolism of drugs that intervene in folate and cobalamin-dependent reactions. %%% This conference will bring together researchers and students who are exploring the basic biochemistry and health/disease aspects of folic acid, vitamin B12 and one carbon metabolism. There will be formal presentations of advances in these fields and informal discussions.